Shipboard Scientific Support Equipment

ABSTRACT

12 July 2011
Proposal Number: 1119644
Institution: Scripps Institute of Oceanography
PI: B. Appelgate
Co-PI: Z. Kelety

This proposal requests Shipboard Scientific Support items for the vessels operated by Scripps Institute of Oceanography (SIO) namely; the R/V REVELLE, MELVILLE, NEW HORIZON, and SRPOUL. Requests include: (1) a quick-acting emergency escape hatch for NEW HORIZON, (2) new RADAR and refrigerator for SPROUL, (3) a Doppler speed log for REVELLE. All items requested will either enhance safety, bring vessels into current regulatory compliance, or provide greatly improved science support capabilities.

Broader Impacts: SIO vessels support federally-funded scientific research throughout the world’s oceans and routinely expose graduate and undergraduate students to seagoing oceanography. SIO participates in a large number of outreach programs including open house events, student tours, and hosting of government officials, dignitaries, and science communities while in foreign ports. All told, Scripps vessels are scheduled to complete nearly 400 NSF sponsored days in 2011.